Implementation and Dissemination of the Harvard Consortium Materials in Arizona, Oklahoma and Utah

The Harvard Calculus Consortium materials are being implemented throughout Arizona, Oklahoma, Utah, and the surrounding regions. Implementation will be achieved in two complementary steps. First, over three years, the coalition (Arizona State University, Brigham Young University, Northern Arizona University, Oklahoma State University, and the University of Arizona) will implement the reformed calculus. Second, the coalition activities will be expanded to include other two- and four-year institutions and high schools from the region. The three-year plan consists of six parts: (1) A series of half- day informational discourses to expose reform calculus to inform colleagues, members of the client disciplines, high school teachers, future participants from two- and four-year institutions. (2) A series of on-site workshops to train instructors: full-time faculty, part-time faculty, adjunct faculty, teaching assistants, and high school teachers. (3) A series of on-site workshops to train undergraduate graders and tutors. (4) A one-day site-visit with participants each month during the semester following the workshops. (5) The establishment of an electronic mail and bulletin board type facility for all users of the Harvard Consortium material. (6) A series of presentations at regional and national professional meetings intended to encourage attendance at either an informational discourse, or the workshops themselves.